Mathematical Sciences: Mathematical Simulations

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The science supported on this project will include the following: numerical testing for accuracy for three dimensional flows; graphic solutions to inverse problems related to reduced wave equations with variable sound speed; solutions of differential equations and interactive graphics in mathematical biology; and simulations of granular flow.